Assessing the Cultural Validity of Science & Mathematics Assessments

This study seeks to understand and assess the cultural validity of science and mathematics assessments used widely in elementary schools. The aim of the study is to understand how students from different cultures react to specific forms of test items so that the factors can be made more explicit and then considered in the development of standardized tests. The investigators will administer test items selected from the National Assessment of Education Progress (NAEP) to diverse populations ranging from Chinese urban to rural Yup'ik. The investigators propose to work individually with each cultural group and ask them to "think aloud" as they engage in solving items on the assessment. Students will explain how they interpreted the item and how they relate its content to their personal experience. Another instrument would be used to measure soci-cultural activity.